Acquisition of a Rheometer for Polymer Materials Research and Education

9975592
Balsara

This award will provide partial support for the acquisition of a rheometer. It will be used in a multi-user facility to study the rheological properties of a variety of polymer solids, melts, and solutions, including: (1) rheology studies of complex polymer mixtures such as polymer microemulsions, hydrogen-bonded polymer blends, and polysaccharide solutions; (2) the relationship between rheological properties and microscopic motion in polynorbornenes; and (3) dynamics of network- and glass-forming liquids.

The rheometer will be an integral part of polymer education at Polytechnic University. A rheology experiment will be added to the existing graduate Polymer Lab course. Students will work on simple homopolymer melts to see the consequences of well-established phenomena such as entanglement and time-temperature superposition. In addition, it will be used to demonstrate the rheology of more complex systems such as block copolymer melts in the graduate Solid State of Polymers course.
%%%
The rheometer will be dedicated for polymer research and educational activities in the Department(s) of Chemical Engineering, Chemistry, and Materials Science at Polytechnic University.
***